Research Initiation: Unconstrained Optimization in DiscreteEvent Simulation

In many real world systems, they are of such complexity that the functional relationship between the parameters of the system and its performance is not well understood. Simulation is often the only tool that can be used to evaluate the performance of the system. Standard mathematical programming techniques cannot be used to optimize the performance of the system. This project will conduct research aimed at developing efficient methods for optimizing the performance of stochastic system with respect to continuous decision variables. The project is concerned with three issues: 1) under what conditions do several new stochastic approximation algorithms converge, 2) when are these conditions satisfied in simulation, and 3) how do stochastic approximation algorithms compare empirically?